Travel to Attend: The 1987 Gordon Research Conference on Physics and Chemistry of Laser Diagnostics in Combustion July 13-17, 1987, Plymouth, NH

The Gordon Research Conference on Physics and Chemistry of Laser Diagnostics in Combustion is a high quality gathering of experts. It is held biennially in New Hampshire to review the state of the art and promising directions. Although the program is structured to cover all relevant aspects of the field, considerable flexibility is built in so that truly creative discussions can take place and new directions emerge. In the many scientific areas covered by the Gordon program, the name has become synonymous with quality. A 12-month grant is recommended in the amount of $3,500.